LETRAS: A Learning-based Framework for Machine Translation of Low Resource Languages

The LETRAS project investigates novel approaches to development of Machine
Translation (MT) technology, with the goal of establishing a general framework
that supports building MT prototype systems for languages for which only
limited amounts of data and resources in electronic form are available. The
research focus of the project is on automatic learning of translation
transfer-rules from limited amounts of elicited bilingual data. A new run-time
translation "engine" maps source language sentences to their target language
equivalents, by building a large structure of possible partial translations
and then applying effective search techniques for recovering the best
translation. In the last stage, an automatic rule refinement module helps the
system learn how to correct and improve its imperfect translation rules, based
on feedback on translation errors provided by users. MT prototype systems for
several language pairs are being constructed as an integral part of the
project and in collaboration with external research groups. The prototypes
guide our research and test out our new ideas. At the same time, our
collaborations with local researchers and native communities promote the
development of information technology for native languages and educate local
researchers with our state-of-the-art MT research. The prototypes include a
Hebrew-to-English MT system (with University of Haifa, Israel); an
Inupiaq-to-English MT system (with University of Alaska, Fairbanks, and the
Inupiat Heritage Center in Barrow, Alaska); and a Karitiana-to-Portuguese MT
system (with University of Sao Paulo, Brazil). Support for the Alaska
collaboration is being provided by NSF's Office of Polar Programs (OPP), and
support for the collaborations with Israel and Brazil is being provided by
NSF's Office for International Science and Engineering (OISE). OISE is also
providing funding for a planning trip to Bolivia to explore a possible
Aymara-to-Spanish project. The potential long-term impact of the project
is profound - enabling the development of Machine Translation for many
languages of the world, which in turn opens the door for active participation
of native and minority communities in the information-rich activities of the
21st century.